Industry/University Cooperative Research Center for Applied Polymer Sciences - Evaluator Support

ABSTRACT EEC-9634103 Hiltner Each Industry/University Cooperative Research Center (I/UCRC) has an evaluator associated with the Center to study the industry/university interaction occurring within the Center. This information is of interest to both the I/UCRC Program and the Center Director as well as providing a data base to be used by researchers studying Centers. This award provides funding to study the industry/university interaction occurring in Case Western Reserve University's Industry/University Cooperative Research Center for Applied Polymers. The evaluator will conduct investigations of Center activities, participate in annual meetings, attend the NSF evaluator activities, and interview departing companies.